Conference: Advancing a Community of NSF Engineering Education and Centers Scholars, Leaders, and Innovators

The American Society for Engineering Education (ASEE) proposes to host a series of ten (10) conferences in the next two (2) years to bring together grantees and other relevant stakeholders to cultivate communities within the National Science Foundation’s Engineering Education and Centers (EEC) division ecosystem to address current issues facing engineering.
• Two EEC Grantee Conferences that will provide a forum for EEC PIs and team leaders to learn, explore, and share ideas that promote innovation in education, research, and practice. Grantees will be invited from the broadening participation, engineering education and workforce development clusters.
• Two Centers and Networks Cluster Meetings that will enable Engineering Research Centers (ERCs) teams to share ideas and strategies on how to produce
1
transformational engineered systems and develop engineering graduates adept at technological innovation and leadership.
• Three RED Consortium Meetings that will provide a forum for Revolutionizing Engineering Departments (RED) teams to learn, explore, and share ideas that promote transformation in engineering education research and practice.
• Three Virtual RET Poster Sessions for Teacher Participants that will provide a forum for Research Experiences for Teachers (RET) site teacher participants from the NSF Directorates for Engineering (ENG), Computer and Information Science and Engineering (CISE), and Biological Sciences (BIO) to share posters and presentations showcasing their research experiences.